15th International Workshop on Unification (UNIF 2001) to be held in Europe

The main objective of this project is to organize UNIF 2001,
the 15th International Workshop on Unification.

Unification is concerned with the problem of identifying given
terms, either syntactically or modulo a given logical theory.
Syntactic unification is the basic operation of most automated
reasoning systems, and unification modulo theories can be used,
for instance, to build in special equational theories into
theorem provers.

UNIF 2001 will be the latest in a series of annual international
workshops on unification, the previous ones having been mostly in
Europe (France, Germany, Italy, and Spain) and twice in the US.

The aim of UNIF 2001, as that of the previous meetings, is to
bring together people interested in unification, present recent
(even unfinished) work, and discuss new ideas and trends in
unification and related fields.

In particular, it is intended to offer a good opportunity for
young researchers and researchers working in related areas to get
an overview of the current state of the art in unification theory
and get in contact with the experts in the field.

In addition to researchers from automated reasoning and term
rewriting, the traditional participants to UNIF, this year's
workshop will try to attract also researchers from theoretical
computer science working on unification algorithms for special
theories (such as associativity) where astonishing progress has
been achieved in the last two years.

The workshop will also try to facilitate, with travel awards and
registration fee waivers, the participation of young researchers
from the United States. The intent of this is to stimulate research
on unification in this country, as well as alert US researchers
working in automated reasoning and verification to recent results
in this field.